MRSEC: Center for Porous Materials

0080019
Chan

The Materials Research Science and Engineering Center (MRSEC) at Penn State University supports an interdisciplinary research program on collective phenomena in porous hosts. The group research addresses the collective molecular, photonic and electronic effects that emerge in nanometer-scale porous systems of one-, two- and three-dimensional connectivity. Particular emphasis is placed on ordered structures with application to tunable photonic crystals, phase transitions in fluids, and electronic effects in one-dimensional wires and three-dimensional solid phase superlattices. The Center also provides seed support for emerging research opportunities.

The Center supports well maintained shared experimental and computational facilities and also supports interactive efforts with industry and other sectors. Comprehensive education activities range from K-12 to graduate education, with outreach to the public through ties to science museums.

Participants in the Center currently include 13 senior investigators, 2 postdoctoral associates, 16 graduate students and 2 technicians and other support personnel. Professor Moses Chan directs the MRSEC.